VLSI Circuit Based Data Acquisition System for Characterization of Environmental Loads and Effects

The objectives of this program are (1) to define the requirements for a data acquisition system to measure environmental loads and effects, and (2) to interact with researchers and producers of Very Large Scale Integrated Circuits (VLSI circuits) to design and construct a prototype VLSI circuit to implement this data acquisition system. The project involves the definition of data acquisition requirements and input device characteristics for measurement of: ground shocks using seismic acceleromterers; wind speed and direction using standard anemometers; as well as the response of buildings using accelerometers or strain gauges. System requirements will be defined at a national workshop to discuss full-scale measurement requirements for environmental loads and effects.